SGER: Reversible Silencing of the CA1 Hippocampal Neurons

9807858 White Neuroscientists have long wished they had the means to switch different types of brain cell off and back on again in experimental animals. By doing so, they could investigate quite specifically how each type of brain cell helps the brain perform its various functions. The aim of this project is to develop just such a technique in genetically engineered mice. The technique makes use of a kind of protein called a potassium channel, commonly used by cells to carry electrical signals. The potassium channel in this case has been altered, however, to act as a current shunt and to effectively short- circuit the cells that express it. By directing the expression of this "shunt channel" to specific classes of brain cells and by controlling its expression with a drug it can be transformed into a cell-type specific switch. When the "shunt channel" is expressed, the brain cells that express it will be "off," or electrically silent; when it is not expressed, the brain cells will be "on," and functioning normally. Techniques for regulating protein expression in the manner described are being developed in mice, specifically for a class of brain cell thought to be essential in memory formation. These cells, called hippocampal pyramidal cells, will be the first target for testing the "shunt channel" switch. The hope is to demonstrate that these hippocampal pyramidal cells can be turned "on" and "off," using the technique described, and that their role in memory formation can be better defined. In particular, it will be interesting to see if the ability to form memories can be switched "on" and "off with these brain cells. If the technique is successful, it should allow not only a more detailed dissection of the process of memory than has been possible so far, but also provide the general method for studying brain cell function that brain scientists have long sought.